Minority Graduate Research Honorable Mention: Edward B. Re

This special award will give Edward Re additional flexibility in pursuing his graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.